International Commercial Arbitration in the Emerging Global Economy

International commercial arbitration has become a vital institution in the emerging global economy and has displaced litigation in many instances. Business entities and governments for various reasons have turned increasingly to international commercial arbitration in order to process the transnational disputes that inevitably arise with increased trade and commerce. The disputes are part of a competitive process which involves arbitration centers, legal professionals, and sets of governing norms. Understanding the patterns of this disputing is crucial to understanding how business transactions will be regulated within the new global order. This project explores the development of and variations in international commercial arbitration. The research draws generally on four bodies of theoretical literature: private governance, the role of multinational enterprises in the global economy, disputing processes, and the internationalization of the legal profession. Approximately 100-150 lawyers and arbitrators in six international cities will be identified and interviewed to create the primary data set. Additional data will include historical, descriptive data and statistical data from several arbitration centers in order to document changes in this practice in recent years. This study of international commercial arbitration provides a unique opportunity to bring a rich body of research to a neglected aspect of business disputing and therefore to explore the emerging system of private and public governance in the field of international commerce. The research promises to add substantially to our understanding of the development of private sector dispute resolution and its relationship both to the public courts and the private agendas of professional groups and corporations. In addition, private governance and global business will be related to the question of what lawyers have to offer in a regime beyond nation states.